Program for Integration of Advanced Technology in ElementaryTeacher Preparation

The intent of this project is to establish a model program for the integration of advanced technology in a preparatory biology course for preservice elementary teachers. The program seeks to improve the basic biology instruction provided to preservice elementary teachers, provide examples of the use of a variety of advanced technologies in elementary science teaching, and to involve preservice elementary teachers in the development and use of computer-based teaching materials for elementary science instruction. To achieve these goals, a variety of advanced technologies will be carefully integrated into the curriculum of a two-semester biology course serving about 200 preservice elementary teachers at Purdue University. Students' knowledge and attitudes will be assessed throughout the project by comparing sections receiving technology- enhanced instruction with those receiving "normal" instruction. This project focuses on issues important to the National Science Foundation and to Science Education. It represents a bold step in the direction of computer integration into content courses and through the many "hands-on" activities, and should result in teacher familiarity with computers and use of computers in teaching elementary science.